REU SITE: Summer Research Projects in Contemporary Physics for Women and Minorities

An REU site project for women and minorities will be established in the Department of Physics at the University of Chicago. The overriding objective of this project is to actively encourage members of underrepresented minority groups and women to pursue careers in physics. This project is part of a comprehensive program undertaken by the Department to increase enrollment of women and minorities in physics in general and in particular in the graduate Ph.D. program as well. The project will consist of placing 10 selected individuals within research groups of different faculty for a 10 week period each summer. These projects will cover a variety of Physics research areas (for the most part experimental) including high energy physics, cosmic ray and space physics, condensed matter physics, nonlinear dynamics, chemical physics, and astrophysics. The research experience will be augmented by the availability of informal review and advising sessions with members of the Physics faculty.